Flowing Afterglow and SIFT-Drift Studies of Gas Phase Ion-Molecule Reactions

This project, within the Organic Dynamics Program, involves the continuing work of C. De Puy and V. Bierbaum of the University of Colorado. They will generate highly reactive, ionic species by electron impact under high vacuum, and observe, by mass spectrometry, reactions resulting from the collision of these ions with neutral molecules. This will lead to a better understanding of organic ionic reactions by removing the effects of solvation which are present in condensed phase reactions. Reactions between ions and neutral molecules in a flowing afterglow selected ion flow tube apparatus will be studied. Ions will be generated by electron impact or by other methods including ion synthesis reactions, separated from other ions and neutral precursors in a quadrupole mass filter and injected into a flow tube together with 0.5 torr of helium. Highly reactive ions, as for example CH anion, will be allowed to react with a variety of neutral reagents in order to compare their reaction rates and product channels with more conventional reactant ions. Isotopically labeled ions, particularly those containing S-34, Cl-37, O-18 and C-13, will be used as tracers to examine rates for reactions which would otherwise be hidden as in, for example, that between HS-34 anion and hydrogen sulfide (S-32). Positively charged hydrocarbon cations which are expected to occur in the interstellar medium will be allowed to react with molecules (e.g., water) known to be present in space in an attempt to understand the origin of organic molecules under the unusual conditions of space. The acidity of very weakly acidic molecules, for example amines, heteroaromatic compounds and alkanes, will be probed by chemical reactions of silanes. The overall goal is to understand the details of simple organic ionic reactions by removing the obscuring effects of solvation.